Oceanographic Instrumentation

The Institute of Marine Sciences at the University of Alaska has requested several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V ALPHA HELIX, a research vessel owned by the NSF and operated by the University. A substantial part of the ship's operating schedule during 1988 is in support of NSF-sponsored research projects. The instrumen- tation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The equipment includes: -A Disk drive system for increasing shared-use computing capabilities, -A rapid-flow chemical analyzer for precisely measuring various chemical parameters in seawater, and -several precision reversing thermometers. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.